Mathematical Sciences: REU: Problems in Applied Mathematics and Geometry

9300619 Tepper Support for three undergraduate researchers will be provided by this award. The students will work with the principal investigator on selected questions in applied mathematics taken from industry-related problems. Typical of these questions are studies of light loss in space telescope metering, modeling clocks in space and analyzing relativistic effects of lights paths. Some of the work will involve numerical approximations. Visits to industrial research facilities are also planned. Research experiences for undergraduates provides first-hand applications of mathematical theory developed during students' classroom experience. The work often leads to publishable results which are presented at professional meetings. Students are also better prepared to make important career choices when they return to the final years of undergraduate study. ***